22nd RD50 Workshop on Radiation Hard Semiconductor Devices for High Luminosity Colliders, Summer 2013 at University of New Mexico in Albuquerque, NM

The University of New Mexico will host the 22nd Workshop on Radiation Hard Semiconductor Devices for High Luminosity Colliders on its campus from June 3 to 5, 2013. This represents the first North American meeting in a series dating from 2001. Silicon detectors, including strip and pixel devices are ubiquitous in modern particle physics and nuclear physics experiments. The advent of three-dimensional devices and multi-layer structures used for local track triggering afford the prospects of bring tracking information to the earliest stages of trigger decisions for the data recording of very rare phenomena in a horrendous background of uninteresting processes.

Given the very high radiation fields in which these devices are located, and the attendant high readout rates needed to deal with signals both in situ and off detector, an ongoing strong effort is needed to conduct R&D and discuss results and challenges across the field on a regular basis. This workshop affords the scientific community such an opportunity. Sessions will cover Material and Defect Characterization, Detector Characterization, Full Detector Systems, and New Structures. A half day mini workshop on radiation damage at LHC experiments is planned for the afternoon of June 5. An important broader impact of the workshop is that attendance by junior members of the instrumentation community is a priority for the meeting. All talks will be plenary, providing excellent visibility for both experts and younger scientists.